Scholarships for Computer Science, Engineering and Mathematics Majors

The South Mountain campus of the Maricopa County Community College District is awarding scholarships to students pursuing computer science, computer technology, engineering, engineering technology or mathematics studies. Over the four-year project period, an average of thirty academically talented, but financially disadvantaged, students are receiving $1500 each semester that they are enrolled full-time. Each scholarship recipient develops an Individual Education Plan under the guidance of a faculty mentor. A variety of support services including personal counseling, industry visits, career counseling and job placement assistance are also available to the scholarship holders.